Mathematical Sciences:Nonlinear Diffusion and Diffusive Transport

A model has been developed for the theoretical description of large classes of problems involving nonlinear diffusion and diffusive transport in modern polymeric materials. Of paramount importance in many applications is the formation and propagation (according to prescribed time rules) of multiple sharp (shock-like) diffusive fronts usually involving non-equilibrium, time dependent diffusion processes, mechanical relaxation, and unusual physics and chemistry at fixed and moving boundaries and at interfaces between glassy and rubbery states of the polymer. Precise understanding and coltrol of these fronts is critical for the technological design, fabrication, and use of these devices. In collaboration with an experimental group at Columbia University, the model will be employed to attempt to understand the basic science involved in non-Fickian diffusion of types Case II, Super-Case II, Sorption Overshoot, and Two-Stage at the glass-rubber transition. Various technological problems will be formulated, and techniques will be devised to solve the resulting nonlinear partial differential and integral equations involving unusual boundary conditions at fixed and moving boundaries. Polymers, composites, and synthetic modern materials are replacing traditional materials in many scientific, engineering, commercial, and military applications, and wholly new devices, applications, and even entire new fields are emerging because of the existence of these new materials. This has resulted from rapid and simultaneous developments in materials science, synthetic chemistry, and biotechnology. The list of important scientific and technological advances being achieved and contemplated is truly astounding. For example, it is now thought that fundamental advances can be made in the areas of new adhesives, light-weight and incredibly strong bonding materials and sheet molding compounds, heat shielding devices, pharmaceuticals and medical drug delivery systems, exotic composites designed through self-assembly at the micro-structure level, devices that work as a result of understanding and controlling glass-rubber phase change boundaries, and environmental protective and clean-up devices and materials. Observation and experiments with the new materials clearly indicate that, in many respects, classical theories and results are not applicable. New theories and models, and the analytical and numerical techniques needed to analyze them, will be developed in this project.